Nonlinear Stability of Multidimensional Structures in Fluid Dynamics

Proposal DMS-0401252
PI: Mark Williams, University of North Carolina (Chapel Hill)

Title: Nonlinear stability of multidimensional structures in
Fluid Dynamics

ABSTRACT

The first goal of the project is to investigate the small viscosity
limit for the Navier-Stokes equations.
A long-standing question in shock wave mathematics is
to show that curved multidimensional shock solutions to the Euler
equations can be obtained as limits of smooth solutions to the
Navier-Stokes equations. Another goal is to study the existence,
uniqueness, and stability of solutions (like strong detonations)
to the Chapman-Jouget and ZND models of combustion, and to clarify
when and how well solutions to these simplified models approximate
true exact solutions of the full Navier-Stokes-combustion system.
The proposed research will also examine the neutral stability
regime for both shocks and vortex sheets, and in particular will
attempt to provide a rigorous foundation for the theory of Artola
and Majda which describes the development of kink modes leading to
roll-up in supersonic vortex sheets.

The proposer intends to carry out a rigorous investigation of the
existence and nonlinear stability of certain important
multidimensional structures arising in the mathematical study of
compressible fluids. These structures include shock waves,
detonation fronts, and vortex sheets. There is a vast applied
literature on these topics, but until relatively recently they
have resisted rigorous mathematical analysis, particularly in the
multidimensional case. In recent work by the proposer, his
collaborators, and others new tools have become available that
permit a rigorous study of the highly singular perturbation
problems that arise in investigating the stability of such
structures.